Microcomputer-Based Labs for Non-Majors' Physics Courses

Microcomputer-based laboratory workstations are used for data acquisition and analysis in the laboratory experiments of beginning Physics courses for non-majors. These courses reach 200 to 300 students every semester, including a large number of education majors.